Travel Support for Workshop on Academic Careers for Women inComputer Science, San Diego, California, May 15, 1993

This award provides travel support for 20 women in the CISE disciplines who are starting or ready to start academic careers, to attend a 1-day workshop on Academic Careers, to be held on May 15, 1993, immediately prior to the opening of the Federated Computing Research Conference (FCRC) in San Diego. The workshop will include sessions on the tenure process, obtaining an academic position, building a research program, obtaining external funding, teaching, making connections with people in the field, and time management. Funds are also provided to support the awardees in registering for one of the participating research meetings at FCRC.